Infomax Neural Networks for Real-Time Learning and Control

Proposal Number: 0622229

Proposal Title: Infomax Neural Networks for Real-Time Learning and Control

PI Name: Movellan, Javier R.

PI Institution: University of California-San Diego

The objective of this project is to develop principled methods for
solving Infomax Control problems, i.e., problems that require the
control of active sensors so as to maximize the value of the
information they gather.

Intellectual Merits:

Recent advances in stochastic optimal control, neural networks, and
machine learning have made it possible to approach this problem in a
principled manner. The proposed approach relies on three
methodologies: (1) Mathematical modeling; (2) Empirical studies to
evaluate the predictions made by the models; (3) Development and
evaluation of robotic systems.

Broader Impacts:

Infomax control is a critical problem with applications to robotics,
autonomous navigation, distributed control, automatic teaching
systems, and national defense. For example, the approach can be
applied to develop tutoring automatic tutoring systems that ask
questions so as to optimize the material learned by the students. It
can also be used to develop algorithms for data-mining large datasets
so as to acquire the relevant information as quickly and efficiently
as possible. It can also be used for developing robots that actively
scan the environment gathering the information that is most important
to achieve their current goals. Finally the approach will provide a
mathematical foundation to help understand how the brain connects
perception and action.

In addition to the funding of graduate students, research and
education activities will be developed in conjunction with the
Engineering Course at the Preuss School in San Diego, a
charter School for low-income student in grades 6-12. The proposed activities will serve as an example of an approach to introduce and teach the latest technological and scientific research in local middle and high-schools.